1987 Midwest Regional Developmental Biology Conference Indiana University, Bloomington, Indiana, May 14-16, 1987

Support is requested to defray part of the room and board expenses for graduate students attending the 1987 Midwest Regional Developmental Biology Conference in Bloomington, Indiana, May 14-16. The 1987 conference will include the following: (1) At least four sessions of platform presentations. Topics of these sessions are "Control of Gene Expression during Development"; "Cellular and Molecular Aspects of Limb Development"; "Muscle Development, Regeneration, and Plasticity"; and "Embryonic Organization and Pattern Formation". Each platform presentation will include 3 to 5 invited speakers from leading developmental biology laboratories in the Midwest. (2) A poster session. (3) Live-material sessions in various research laboratories in the Dept. of Biology, Indiana University. (4) A keynote address by Dr. Urs Rutishauser of the Dept. of Anatomy and Developmental Genetics, Case Western Reserve University. The purpose of the conference is to provide an effective opportunity for the formal and informal exchange of information and ideas between established investigators and graduate or postdoctoral students. This goal is achieved much more readily at the regional conferences than at national meetings primarily because the regional conferences are smaller, less rigidly scheduled, and allow ample time and occasion for discussions.